Conference Proposal - Rigidity and Flexibility in Dimensions 2, 3 and 4

This grant will support the participation of US mathematicians at a conference on Rigidity and Flexibility in Dimensions 2, 3 and 4 at the Centre International de Recontres Mathématiques in Luminy, France, May 14-18, 2012. This conference will focus on recent developments in the deformation theory of geometric structures and topics will include Teichmüller theory, 3-manifolds, Kleinian groups, cone manifolds, hyperbolic 4-manifolds and representations of surface groups.

This conference will bring together international researchers from a diverse array of subject areas in geometry and topology. Leading experts will give presentations on cutting edge research in their fields. These presentations will expose graduate students and early career mathematicians to some of the most important new developments in these areas. The intermingling of subject matter will encourage collaborations betweenresearchers in different areas. The conference website can be found at www.math.utah.edu/rigflex.